ROW: Yield Surfaces of Particle-Reinforced Composite Materials

The proposal is to characterize internal damage in particle reinforced composite materials, including thermomechanical behavior, micro-mechanics and continuum mechanics approaches. The objective is to develop models which captures the fundamental mechanics phenomena and yet simple enough for implementation.